Mathematical Association of America Prognostic Testing Network Project

This twelve-month project of the Mathematical Association of America (MAA) will establish a Prognostic Testing Network. The testing will use college-level placement tests to predict deficiencies in high school juniors. With the knowledge of these deficiencies, high school students that plan to go on to college can, during their senior year, remediate their deficiencies so that upon entering college they are more likely to be placed in college level courses. Prognostic testing programs have been either started or established in eight states and at least six states are known to be interested in prognostic testing. The MAA Prognostic Testing Network will organize these efforts and provide a network by which information can be exchanged and additional states could obtain help in starting their own programs. The project will sponsor a two-day conference to discuss and disseminate the prognostic testing model and to organize the MAA Prognostic Testing Network. The cost sharing for this project will be thirty-eight percent.